Science and the Origins of a National Historical Consciousness

The interaction of science, technology and national culture is a frequently mentioned but too rarely examined phenomenon. Historians and social scientists have long maintained that there is such a thing as a national style of doing science and technology. The standard example is physics: the British required mechanical models to facilitate understanding of physical forces while the French disdained such models in favor of mathematical equations which allow calculation of how forces act. But beyond this example, there have been too few studies. Correspondingly, there have been too few studies of the influence of science and technology on national culture. Dr. Jackson, working with Dr. Peter Galison of Harvard University, is examining these relationships in the context of the science and technology of optics in Germany, contrasting them with optics in Great Britain. Under this grant, Dr. Jackson is analyzing the switch in optical hegemony from London to Munich in the 19th century and how leading German scholars retrospectively reconstituted this historical episode in order to legitimize their scientific, social, economic and political interests. Among other things, Dr. Jackson is examining how the advances in glass technology in Bavaria made possible the creation of scientific disciplines such as astrophysics, spectroscopy, photochemistry and x-ray technology. Glass technology was to revolutionize the way scientists literally saw the world. Bavarian optical instruments combined with Gaussian mathematics were to enable German physicists and astronomers to surpass their British colleagues. Optics was also crucial to the development of Germany as a political and economic power, as evidenced by the rise of companies such as the Carl Zeiss Works. This company not only produced superior optical instruments, but also provided imperial Germany with instruments and technologies applicable to war. This important history was incorporated into the German culture as an example of the German superiority in technical, scientific research and development. An examination of both the technical and the cultural history of German optics will greatly contribute to our understanding of the interaction of science, technology and society.